RUI: Mechanisms of Predator Response in the Mytilus/ Pisaster Paradigm

9633413 ROBLES Large scale manipulations of prey populations will be combined with tagging of individual predators to investigate possible predator population responses to changing prey availabilities. The predator is the intertidal sea star, Pisaster ochraceus, and the prey are mussels, Mytilus spp., barnacles, Balanus and Semibalanus spp., and other sedentary invertebrates. Hypothetical predator responses include changes in rates of mortality, indeterminate growth, and alongshore movement. The data provide insights into mechanisms of predatory regulation within local populations of the larger metapopulation. The research will be conducted at Western Canadian Marine Biological Laboratories in British Columbia. Most of the field work will be done in summer, when the sea stars actively forage. A brief period of observation is included in winter to maintain experiments and describe the disposition of predator and prey populations in the season when the former is inactive. In addition to scientific discovery, this Research at Undergraduate Institutions (RUI) project seeks to enhance science education and research training for the diverse student body of California State University at Los Angeles. Outstanding undergraduate and masters level students will recieve researech experience at the field location and Cal State LA. ***